Digital Government: National Large-Scale City True Orthophoto Mapping and Its Standard Initiative

EIA-0131893
Guoqing Zhou
Old Dominion University

Digital Government: National Large-Scale City True Orthophoto Mapping and Its Standard

This grant will support planning for a larger proposal to investigate the development of new 3D algorighms for use of digital orthophoto maps in urban areas. Current usage of such maps at high resolution in urban areas has identified problems with perspective displacements, occlusions by tall buildings, geometric inaccuracies, and an inability to create a seamless mosaic of large images. The grant will also allow more complete planning of a partnership with the US Geological Survey, which runs the NationalDigital Orthophoto Program.